Effects of Water and Deformation History on the Development of Lattice Preferred Orientation in Olivine-Rich Rocks

9903087
Karato

In this project, the PI plans to obtain new experimental data on the lattice preferred orientation in olivine-rich rocks with an emphasis on two issues: (1) the influence of high water-fugacity and (2) the influence of complicated deformation history. The investigators will use a newly developed high-temperature, high--pressure, simple--shear deformation technique combined with a newly installed EBSP (Electron back scattered pattern) facility for preferred orientation measurements. Deformation experiments will be conducted at P=2 GPa and T=1500-1600K, where water fugacity is more than 100 times higher than the conditions so far explored by a gas apparatus. The results will provide us with a new data set to interpret complicated patterns of seismic anisotropy in the subduction-zone upper mantle in terms of flow geometry and distribution of water.